Undergraduate Faculty Seminar: Pollution Prevention

Few practicing engineers and scientists, educators, and students have a working understanding of the principles of pollution prevention. The objective of this seminar is to both present a course and develop a problem workbook on pollution prevention in order to address this need and resolve this technology gap. The workbook, problems and solutions will be generated by an environmental, but interdisciplinary, team of engineering and applied science faculty. Topics include: Regulations, Process Plant Fundamentals and Applications, Project Analysis and Economics, Audit Principles, Source Reduction Approaches, Recycling Approaches, Other Control Options, Industrial Applications, and Case Studies. The first draft of the problem workbook will be prepared in the summer of 1992. The 1992-93 academic year will provide an opportunity to classroom-test the effectiveness of the problems in the workbook. A three-day follow-up session in late June of 1993 is also scheduled to provide an opportunity to revise, update, edit, etc., the workbook.